Modal Analysis Equipment for an Undergraduate Mechanical Vibrations Laboratory

This project addresses undergraduate instruction in the areas of machine dynamics and vibration. It supports implementation of modern modal analysis equipment and software into the mechanical vibrations, kinematics and dynamics of machines, and engineering materials courses. A Bruel & Kjaer model 2034A Dual Channel Analyzer, a Dell 333D personal computer, SMS Star modal analysis software, and ancillary equipment are involved. The dual channel analyzer enables students to determine natural frequencies, mode shapes, and damping properties for realistic structures using modern modal analysis techniques. The SMS Star software, running on the Dell 333D personal computer, is used to animate the experimentally determined vibration modes to allow visualization of the vibratory behavior of the structure undergoing the test. Additionally, the software enables design oriented questions pertaining to structural modifications to be posed and simulates the results of such changes using 3-D graphical displays.